Future Directions in Arctic Research

This workshop is intended to bring together Arctic social scientists working on several ongoing US/Russian projects and native leaders to help map future directions of international collaboration. One goal is to establish better links with Native leaders in analyzing and building management regimes for Arctic living resources. A common theme running through the work of these various projects is, above all, the need to develop innovative institutional arrangements capable of accommodating regional and international perspectives associated with whole ecosystems, and the concerns of local, largely indigenous, groups.